Engineering Research Equipment Grant - Color Workstations

This equipment is being used by Professor Mazumder for his research on problems in IC design. In testing, problems addressed are parallel testing, error correction for three dimensional memories, and neural network optimization techniques for built-in self-repair of VLSI components. Physical design problems concern in layout optimization techniques using genetic algorithms. Large systems are being modeled by a hardware description language; and software for verifying correctness, compiling the design, determining the Boonlean equations and implementing them as a VLSI design is being built. In addition, the equipment is being used to design specialized chips for a hexagonal mesh architecture used as an experimental testbed to investigate the behavior of distributed algorithms for real-time systems. This is an equipment grant which will provide Professor Mazumder an engineering workstation, necessary to research in IC design problems. The principal investigator is a promising and productive young professor who is likely to make significant contributions to the field. He has a record of useful, innovative ideas in VLSI testing and IC design. His research topics have high-priority within the Design, Tools and Test Program.